NeTS: Small: IEEE WoWMoM 2011 Student Travel Support

This award of $10,000, is used to assist fifteen United States-based graduate students to attend the 11th IEEE International Symposium on a world of Wireless, Mobile, and Multimedia Networking (WoWMoM 2011), which is held in Lucca, Italy on June 20-24, 2011.